Proof Complexity and Computation

This project supports research by Buss and his graduate
students on computational complexity, proof complexity,
algorithms, and numerical methods. Buss investigates proof theory
and proof complexity, especially aspects that are closely connected
to open problems in computational complexity including the
P versus NP problem. The relevant proof systems include
bounded arithmetics, which are first-order theories tailored to have
logical strength related to feasible computability, and
propositional proof systems, which have rich connections to bounded
arithmetic and circuit complexity. Buss will work to establish
lower bounds on proof complexity based on complexity assumptions
such as the existence of provably secure cryptographic systems.
He will work to prove new independence results and separation
results for weak proof systems. He will investigate what kinds
of computational content can be extracted from proofs.
Buss will investigate the proof complexity of propositional systems such as
Frege systems, cutting planes systems, Nullstellensatz proof systems,
counting axioms, the polynomial calculus, and intuitionistic proof systems.
Buss also works on numerical and geometric algorithms arising
from computer graphics. He will work on simulation methods for
rigid multibodies using higher-order approximation methods over
manifolds, on symplectic algorithms and other energy-conserving
algorithms for physical simulations, and on collision response
algorithms.

The main part of this research lies at the interface between
mathematics and computer science and is motivated by open questions
concerning the fundamental limits of computation. These open
questions include the P versus NP problem, the mathematical
feasibility of secure cryptographic coding, and the optimality
of particular algorithms and circuits for solving combinatorial problems.
This project addresses these questions by investigating computational
complexity and proof complexity. Lower and upper bounds on
proof complexity are closely related to upper and lower bounds
on the hardness of computation. This in turn is closely
related to the mathematical underpinnings of crytography.